CRI: PlanetLab: A Community Resource Development Program

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: PlanetLab: A Community Resource Development Program
Proposal: CNS-0454278
PI: Larry L. Peterson
Institution: Princeton University

This community resource project will extend the PlanetLab testbed to approximately 1000 nodes at approximately 350 sites. PlanetLab is an overlay network providing an environment for both research innovation in network services and a platform for introducing new services to client communities. As a research testbed, PlanetLab provides a geographically distributed set of machines, a realistic network substrate that experiences conjestion, failures, and diverse behavior at links, and realistic workloads at client computers. As a deployment platform, PlanetLab provides researchers with a technology transfer path for services that have community support and provides users with access to these innovative new services. Users of PlanetLab are active in areas such as network architectures, measurement and modeling, content distribution, and education. Broader impacts of this project include enabling a wider community opportunities to engage in cutting edge networking research, extending the host sites to EPSCOR states, HBCU's, and liberal arts colleges; and engaging both industry and international participation in this effort.